U-Th-Ra Isotope Systematics of the Historical Lavas of Kilauea Volcano, Hawaii

9628288 Rubin Geochemical correlations indicate Kilauea's summit lavas were derived from a heterogeneous source. In contrast, lavas erupted during sustained rift zone eruptions show rapid and systematic temporal decreases in their incompatible trace element ratios (e.g., Ce/Yb) but little or no change in Pb, Sr, and Nd isotope ratios. These short-term geochemical relationships may be caused by progressive depletion of a localized, relatively homogeneous mantle source. Out hypotheses to explain these observations are : (1) the overall compositional variability of Kilauea lavas results from melting a heterogeneous mantle source. (2) The rapid trace element changes during sustained rift-zone eruptions are observed because the magmas for these eruptions bypassed the summit reservoir and avoided it buffering and/or contaminating effects; and (3) The timescale for melting and magma transport are short (1-2 ka). To specifically examine the above hypotheses it is planned to determine the activities of the major isotopes of U, Th, and Ra in three different Kilauea sample suites. High-precision mass spectrometry methods will be used to determine 238U, 234U, 232U, 230U, 228Ra , 226Ra, and Ba concentrations in these lavas. Integrating the results of these measurements with other available geochemical data will allow us to evaluate: (1) the relative importance of variations in the partial melting process versus heterogeneity in the mantle source region for creating the compositional diversity of Kilauea lava, and (2) the structure (geometry and size) of Kilauea's shallow magma plumbing system.